Instrumentation Development Proposal: Design & Construction of a Modular Instrument to Study the Photofragmentation Channels of Polyatomic Radicals

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, Prof. Laurie Butler of the University of Chicago will design and construct a modular instrument to study the photofragmentation channels of polyatomic radicals. The instrument will incorporate the following capabilities: a) photolytic generation of radicals in a skimmed, differentially-pumped pulsed molecular beam expansion source; b) high-resolution velocity map imaging detection, with real-time ion-counting, of the velocities, internal state distributions, and angular distributions of reaction products detected via resonance enhanced multiphoton ionization; c) hydrogen atom high-n Rydberg time-of-flight detection; and d) dispersed UV photon emission detection.

Gas phase radical chemistry is of central importance in diverse areas such as combustion and atmospheric processes.